Group Travel for Symposium on Experimental Gravitation, August 16-21, 1999, Samarkand, Uzbekistan

This award will support travel of US scientists to participate in the Symposium on Experimental Gravitation, to be held in Samarkand, Uzbekistan, August 16-21, 1999. The Symposium will describe progress over the past few years, and allow participants to exchange ideas and suggestions for future research. The location of the conference will provide a special opportunity to begin new international collaborations with a talented pool of scientists.